POWRE: Adaptive Fuzzy Intrusion Detection using Cooperative Agents

EIA-0074919
Dickerson, Julie A.
Iowa State University

POWRE: Adaptive Fuzzy Intrusion Detection using Cooperative Agents

This POWRE proposal explores an interdisciplinary area of research in network security. The project proposes a novel method that uses distributed fuzzy agents to recognize intrusions in networked systems. Intrusions can be detected by noting anomalies in the use of a system and misuse of computing resources or data. As part of this research, the following issues will be addressed: (1) the development of distributed fuzzy agents to collect and assess data on a switched network, (2) new methods of encoding complex causal sequences and intrusions, and (3) novel mechanisms for finding new attack profiles and methods to stop false alarms using neural fuzzy learning methods.